Travel Support for American Attendees of the Dagstuhl Seminar on Deduction to be held in Germany from March 8-12, 1993

Travel Support for American attendees of Dagstuhl Seminar on Deduction, March 8-12, 1993, Dagstuhl, Germany This grant supports the travel of American researchers to attend the Dagstuhl seminar on deduction. The seminar will bring together about 50 leading researchers from all over the world to discuss recent results and future research directions. Participants will include researchers representing the German national program on deduction which has been formed recently.